ITR: System Support for Automatic and Consistent Replication of Internet Services

This project explores two complementary techniques for addressing
fundamental limitations in replicating network services. The first aspect
of this proposal seeks to automatically replicate service programs and
state information to allow transparent caching or replication of dynamic
services. The goal of the research is to allow transparent caching or
replication of dynamic services, a key step toward automatically converting
unscalable service implementations into scalable ones. The second thrust of
this work is to allow network services to dynamically trade replica
consistency for increased system availability and performance. The TACT
(Tunable Availability and Consistency Tradeoffs) toolkit allows Internet
services to flexibly and dynamically choose their own
availability/consistency tradeoffs. We use three consistency metrics,
Numerical Error, Order Error and Staleness to capture application-specific
consistency requirements of Internet services. Applications use these
metrics in addition to application-specific parameters to assign a numeric
value to system consistency, e.g., the percentage of user requests that
must eventually be rolled back because of underlying replica
inconsistency. Finally, TACT allows consistency to be specified on a
per-user, client, and replica basis, enabling differentiated quality of
service.